Tying Together Low-Level and High-level Planners with Cellular Decompositions

Title:

Tying Low-level and High-level Planners together with Cellular Decomposit
ions

Abstract:

One of the grand challenges in planning is tying together high-level
global planners with low-level local planners, often called behaviors
or control laws. Global planners provide provable guarantees but are
often too abstract to respect the details and dynamics afforded by
local planners, which in turn lack provable guarantees. The proposed
work aims to get the best of both worlds: inhereting the provable
completeness of global planners while respecting the local details and
dynamics with local planners. The real challenge is: how does one tie
together the high-level and low-level aspects of a planner. The
proposed work takes a topological approach towards addressing this
problem, addressing three focused problems -- planning in narrow
corridors with probabilistic methods, defining hybrid control laws for
navigating and mapping tasks, and sensor-based exploration of highly
articulated bodies. The broad impact of this work lie in path planning
for non-Euclidean configuration spaces and developing control laws for
those spaces, as well as further develop a LEGO robotics lab module.